Collaborative Research: Cog-TV: Business and Technical Analysis of Cognitive Radio TV Sets for Enhanced Spectrum Access

Today's wireless networks are facing an emerging spectrum crisis due to increased demand. FCC has recently allowed non-licensed devices to operate in the TV spectrum band, leading to cognitive radio networks (CRNs). It is argued that CRNs result in a technical and economical conflict with the TV broadcast companies, which own licenses to the TV spectrum. In this project, CRNs are considered as a business opportunity for broadcast companies. The answer to the following question is sought: "Is it economically and technically viable for broadcast companies to utilize TV white spaces for low-cost Internet provision and web-enabled TV services?" To facilitate the involvement of broadcast companies in the cognitive radio business, the concept of cognitive radio-enabled TV set (Cog-TV) is considered. Cog-TV provides low-cost access to the Internet and local area network capabilities. Cog-TVs are assigned optimal spectrum sensing schedules to provide service differentiation capabilities through a novel neighborhood watch concept. Dynamic pricing techniques are developed with the objective of distributing the peak-time demand load. Moreover, the cost of building the Cog-TV infrastructure in urban and rural areas is analyzed to determine its economic feasibility. Through this architecture, broadcast companies can leverage their channel ownership to create a competitive advantage.

The results from this research are expected to enable transformative and economically viable CRN development and management approaches. The Cog-TV concept has the potential to bring affordable Internet service to a large group of American households and impact consumer market by creating a niche market in new TV sets.